III-CTX-Small: Exploiting domain expertise to enhance information retrieval

This project focuses on enhancing existing document representations with representations of semantic content at a subdocument granularity; representing documents from multiple perspectives; and leveraging the attention and domain knowledge of end-users to improve document representations. This will lead to improvements in the retrievability of documents in future searches. The research will provide one of the first systematic studies of the potential added value of interpretation and labeling efforts contributed by a community of end users. In addition to evaluating the results of this particular approach to improving information retrieval, the work will contribute needed tools for evaluating incrementally-added indexing. An outcome of the research will be evaluation techniques that will be applicable to other research on incrementally-added indexing. The project builds a successful, interdisciplinary collaboration with the national, public, healthcare portal in Denmark, with strong participation from the government partner as well as physicians in Denmark who help to design the studies.